Facilitation of Research by Undergraduates in Life Science.

The Life Sciences Department is requiring an independent research project as a component of its curriculum for majors. This Senior-year project is involving students in research with a particular focus upon Molecular Biology. Powerful motivators, the projects provide students an environment for developing modern laboratory skills and techniques while pursuing a currently important biological question. As a result, these undergraduates better comprehend the essence of science while at the same time they gain better preparation for entering careers based on scientific processes. Participants are being encouraged to communicate the results of their research to their peers and to other scientists through publication and/or oral presentation of their work. The new equipment provided through this grant is being used for basic work in Molecular Biology, including the purification and experimental manipulation of nucleic acids. The simplicity of many of the techniques employed in Molecular Biology makes it feasible for undergraduates to accomplish significant work if properly motivated and supervised.